A Unified Classical/Modern Approach for Undergraduate Controls Education with Integrated Laboratory

The goals of this project are to present faculty members with an integrated methodology for teaching undergraduate control theory and its application to a wide variety of mechatronic systems. The program combines the insight and understanding of classical control (frequency domain) theory with the computational power of modern control (time domain) theory. Often, the tools of these two domains are taught in separate sections of a course, or in separate courses. This need not be the case, as is demonstrated in our undergraduate and graduate courses at Georgia institute of Technology. The GA Tech classroom approach will be integrated into the mechatronics laboratory curriculum developed at RPI to provide the students with the ability to realize their control designs on inexpensive controllers. Through this course we will provide faculty with the means to educate students such that they will develop an excellent intuitive understanding of control theory, a firm grasp on powerful computational tools currently available, and the ability to physically implement these systems. The integration of theory, computer tools and laboratory experiences will yield an educational opportunity for the students that far exceeds any standard classroom experience currently taught.